Vacuum Energy (Physics)

This project will address topics which offer promise for unifying fundamental interactions, in particular, string theory. It will focus on: (1) The appearance of a low energy scale, supersymmetry breaking and the vanishing of the cosmological constant; (2) How does nature choose between the myriad possible vacua of string theory? This work is at the frontiers of the most abstract parts of modern elementary particle theory, so-called "string theory." It is not yet possible to predict the success this approach will have in explaining the fundamental interactions of elementary particles, or, if it is successful, what theoretical and/or practical applications will follow.